CEDAR: ALOMAR, A CEDAR Temperature, Wind and Momentum Flux Lidar for Global Change and Dynamics Studies in the Arctic

This project will provide for participation in the creation and operation of ALOMAR, an Arctic Lidar Observatory for Middle Atmosphere Research. In conjunction with other CEDAR and European lidar programs, the PIs will develop a high-power laser providing sodium temperature and wind measurement capabilities with ALOMAR. This research, when completed, will address a range of geophysical processes occurring at high latitudes, but having global implications, using unique capabilities among current atmospheric lidars.